Ultraviolet/Visible Spectrophotometry and Computer Inter- facing in Undergraduate Chemistry

The focus of this project is two-fold: 1) to provide undergraduates with improved ultraviolet/visible spectrophotometric capabilities for experimentation in analytical chemistry, biochemistry, and advanced laboratory courses and research projects, including capability for conducting kinetics experiments, and 2) to provide computer hardware and software for students to gain experience with computer interfacing for laboratory instrument control and data acquisition. An integrated, multipurpose system consisting of a spectrophotometer, accessories, microcomputer system, and associated software will be used by undergraduate students in upper-level chemistry courses serving chemistry, biology, and medical technology majors. Through this project Bethune-Cookman College, an historically Black institution, will continue its significant contribution to science education of minority students.